Research Related to the National Reconnaissance Office (NRO) Membership in WICAT: First Year Plan and Possible Follow-on Activities

Funds provided by the Department of Air Force will be used to fund a project at the Industry/University Cooperative Research Center for Wireless Internet at the University of Virginia. The major objectives of the project are to improve wireless network performance capabilities and security for mobile users.

The I/UCRC has been carrying out a variety of research efforts focused on serving mobile users operating in a large enterprise. This project will complement the existing effort at the University of Virginia that is exploring image processing techniques that separate foreground and background information for images so as to reduce bandwidth and processing requirements for mobile users. The research will be conducted under the standard I/UCRC terms as all of the other research efforts carried our under the Center memberships.